Advanced Technology Education of Middle/Junior High School Mathematics Teachers

The main goals of the project are to provide experienced mathematics teachers at the middle and junior high school levels opportunities to immerse themselves in the use of technology to explore and to teach mathematics, to prepare leaders among the teachers who can communicate their technological knowledge to other teachers, and to produce teaching materials built around the technology which can be used for workshops as well as for student instruction. Twenty participants are selected from among those recommended by the school districts that have committed to the project. The participants take courses during the summers 1988 and 1989 as well as during the academic year that deal with investigations on mathematics and pedagogical topics, such as probability, problem solving, geometry, and the development of curriculum materials. There is also an interwoven strand of courses that emphasize technology-related topics, such as computers in the classroom, using technology to teach instructional computing research, using technology to teach mathematics, and problem solving using computers.